Collaborative Research: Modeling and Processing of Topologically Complex 3D Shapes

MS-0138445
Denis Zorin
DMS-0221666
Mathieu Desbrun
DMS-0220905
Peter Schroder

This is a collaborative project funded by the CARGO program under
DMS-0138445, DMS-0221666, and DMS-0220905.
Accurate computational representations of complex geometry
are of great importance in many disciplines ranging from
engineering and manufacturing to medicine and biology. With
the wide availability of powerful computational resources and
ever better acquisition technologies such as 3D laser
scanning and volumetric MRI or CAT imaging the geometries
used in applications are becoming increasingly complex. One
aspect of this complexity is topology, i.e., the presence
of holes and tunnels and of a network of one and
zero-dimensional surface features such as creases and spikes.
Typical examples of topologically complex shapes are a
perforated plate or the system of blood vessels of the body.
Traditional representations of geometry are at worst weak
and at best cumbersome and inefficient in representing
such complex topologies. Modeling of macro- and microscopic
biological structures is becoming increasingly important
for medical research, training, and treatment support. Such
structures often have extremely complex shape and topology
(e.g., the blood vessel or the nervous system, facial
muscles, a folded protein molecule). The representations
and algorithms we develop will result in new efficient ways
of manipulating and processing computer representations of
such structures.

In this project a team with expertise in numerical analysis,
geometric modeling, discrete algorithms and computer graphics
is studying ways to bring fundamental mathematical tools
and highly efficient algorithms to bear on the challenge
of creating efficient and accurate computational
representations and algorithms for surfaces of complex
topology. In particular we are investigating theory and
practical algorithms for (I) removal of topological noise
in existing models as well as in raw data used for surface
reconstruction; (II) topology discovery in volumetric
data sets; (III) construction of multiresolution
representations of geometry which can meaningfully
abstract fine level topology at coarser resolutions to
enable powerful multiscale techniques for rendering,
modification and simulation. Particular attention is paid
to exploring measures of topological scale which are
crucial to most of the algorithms being developed. The
algorithms to be developed by the team will have immediate
applications in two areas: Computer-Aided Design and
Medical Visualization. In CAD, examples of potential
applications include topology cleanup, simplification
for integration of scanned 3D data with manually
constructed models and use of multiscale representations
for interactive conceptual design representations.